Nuclear Chemistry: NUCLEAR REACTIONS, Flavors Across Energies; June 13-18, 2004; New London, NH

The grant supports junior scientists' participation in the 2004 Gordon
Conference on Nuclear Chemistry. The objective of the Gordon Research
Conference on Nuclear Chemistry is to provide the international community of
nuclear scientists with a unique forum where the most recent developments in
this field can be presented, discussed and criticized. The emphasis in this
year's Conference is placed on central nuclear reactions, with a particular
attention devoted to the role of flavors in nuclear dynamics. Flavor is
what distinguishes neutrons from protons in an atomic nucleus and the
nucleons from some more exotic particles.

The agenda of this Conference provokes new ideas for future research, in
ensuring that discussions facilitate vigorous and open interactions between
scientists. This requires the participation of a significant number of the
leaders, including both internationally recognized senior scientists and the
young and rising stars. Bright and promising postdoctoral researchers and
graduate students are selected for participation in this Conference and
encouraged to present their ideas. Their participation provides them with
unique and extensive access to the leaders in their field, exposes them to
new research opportunities and techniques and helps prepare them for the
leadership roles they will assume in the future. Some of the young
scientists have been invited to present talks. For others, poster sessions
are organized to provide a forum for their ideas, with best displays
additionally selected for oral presentations.